San Jose Mathematics Leadership Project

This three year mathematics project will develop and evaluate a model professional development program for high school mathematics teachers from twenty schools in three districts in the San Jose, California, area. The project is designed to provide 80 teacher leaders with the knowledge, skills, and understandings necessary to lead implementation of curriculum innovations in their schools. Participants will be involved in three levels of summer institutes and extensive academic year follow-up sessions that involve leadership training, staff and peer coaching, demonstration lessons, micro- teaching, reflection about teaching and learning mathematics, and development of site-based Professional Development Centers. Participants will refresh and enhance their content knowledge, teach and evaluate innovative curricula, work to integrate technology into their teaching, and use analysis and application of mathematics education research, reflective essays, journals, peer coaching,and discussions to reflect on and broaden their beliefs about teaching and learning mathematics. The participants will present inservice to other teachers and will become coordinators of the Professional Development Centers, which will serve, after the project ends, as the site for the school's ongoing program for staff development and curricular and instructional change. Contributions by the university and school districts will provide a cost share of approximately 39%.